Quantutative MHD Modeling of the Solar Transition Region Using Realistic Transport Coefficients

ATM9816335abs

The investigators will continue the development of a magnetohydrodynamic (MHD) model of the solar transition region. The transition region separates the solar chromosphere and the solar corona. It is a thin interface, a discontinuity, between the cooler, partially ionized chromosphere and the much hotter fully ionized corona. A large part of the extreme ultraviolet solar spectrum comes from the transition regions. In order to determine how the transition region is heated, it is necessary to combine observations with models that predict energy dissipation and thermal energy transport rates in the region of parameter space that describes the transition region. In an MHD model, this means that realistic expressions for the transport coefficients that determine resistive and viscous dissipation rates and thermal energy flux must be used, and evaluated, in the ranges of temperature, density, velocity, and magnetic field that characterize the transition region. Due to current limitations in computer speed, multi-dimensional, time dependent MHD simulations cannot use even remotely realistic values of these transport coefficients. The investigators will make modifications to an existing MHD model to include viscous effects, separate energy equations for electrons and protons, and a parametric representation of the net radiative loss in terms of electron temperature and density. The model will help resolve the controversy as to what degree the transition region is heated by in situ viscous dissipation, and dissipation of conduction and thermoelectric currents, as compared to the flux of thermal energy from the overlying corona